Engineering Creativity Award: Batch Integrated Treatment (BIT) for Wastewater Systems

The research deals with the use of biotechnology in environmental pollution control. Micro-organisms are cultivated and contained in a combined equalization, reaction, and settling vessel. This process is designated as a batch integrated treatment. The plan is investigate and select one or more processes, develop a methodology for a lavoratory, bench, pilot and full scale design of a batch integrated treatment process, and to evaluate the selected process in other applications and against other processes. A full scale unit is to be designed, ordered, and installed at an industrial facility.